Enhanced 19F Magnetic Resonance Imaging Probes for Redox Sensing

In this project, Professor Emily Que of the Department of Chemistry at the University of Texas at Austin and Professor Eric Gale of the Department of Radiology at Massachusetts General Hospital will develop magnetic resonance imaging agents for interrogating abnormal redox environments in biological systems including hypoxia and oxidative stress. The goal of this research is to utilize the magnetic and redox properties of iron (Fe) and cobalt (Co) to develop imaging agents for identifying redox environments associated with inflammation, cancer, and other pathologies. In the long term, these agents could enable new diagnostic approaches that help detect disease earlier and monitor how it responds to treatment. This interdisciplinary project draws from the fields of inorganic chemistry, chemical biology, magnetic resonance and will provide rigorous training for graduate and undergraduate scientists. Community college students will further be trained through summer research internships hosted at UT Austin.

Fluorinated complexes of Co(II/III) and Fe(II/III) display magnetic resonance properties that are responsive to biologically relevant redox changes and can be exploited for the development of 19F and/or 1H magnetic resonance imaging (MRI) redox sensors with potential diagnostic utility. Prior work from the team has established that Co and Fe complexes display robust MRI redox responses either through large changes in 19F chemical shift (Co) or modulation of paramagnetic relaxation enhancement of 19F and 1H nuclei (Fe). The proposed work aims to enhance the utility of these frameworks in living systems by addressing key challenges in signal detection and reactivity. The team will pursue this goal via three distinct objectives: 1) Enable intracellular redox sensing with targeted Co-based chemical shift agents: they will molecularly target fluorinated Co-redox sensors with cell surface receptor targeting groups to accumulate them within specific cells and enable assessment of intracellular oxidative events; 2) Develop fluorinated open-chain ligands for Fe-based redox sensing: They will develop new Fe complexes for dual 19F- and 1H-MRI redox sensing with faster oxidation kinetics due to the presence of an open coordination site on the metal center; 3) Explore nanoparticle platforms as high signal density redox imaging agents. They will append metal complexes on highly fluorous nanoparticles to increase signal density of redox sensors. For all objectives, nuclear magnetic resonance dispersion studies will enable the dissection of relaxation mechanisms and inform further design improvements in these systems.